RIA: Synthesis of Reliable and Low-Power VLSI Circuits

Najm This research is on synthesis algorithms for design of reliable, low power CMOS and BiCMOS VLSI designs. The basis for the research is to use boolean transition density to measure deviant activity and thus to help solve power consumption and reliability issues. Research activities include: 1. exploring use of circuit activity as a parameter to be minimized; and 2. investigating the effects of minimizing local power dissipation on circuit design. Algorithms incorporating these new optimization ideas are being developed and integrated into a synthesis environment. The environment integrates the objectives of optimizing area, performance, testability, reliability, and power into a unified set of design algorithms.